U.S-France Joint Seminar on the Utilization of Anomalous X-Ray Scattering, Bandol, France, May 1987

This award will support a seminar, jointly organized by Professor Arthur Bienenstock of Stanford University and Dr. C.E. Williams and D. Raoux of the Laboratoire de l'Utilisation du Rayonnement Electromagnetique (LURE), University of Paris XI, Orsay, on the subject of Utilization of Anomalous X-Ray Scattering. The seminar will bring together scientists from the various disciplines expected to benefit from this newly emerging materials analysis technique in order to plan for the optimum utilization of new X-ray sources now being built. Biologists, chemists, materials scientists, and physicists will be invited to discuss applications of this technique to the study, for example, of amorphous and crystalline solids, protein crystals, metallurgy, colloids, and poorly crystallized solids. This seminar should lead to a rapid diffusion of this new technique among the various scientific communities represented, and also should generate new ideas for applications and techniques. The Stanford Synchrotron Radiation Laboratory and LURE are laboratories which have been pioneers in this field. The timing of the seminar is opportune in light of the fact that three new high-brightness X-ray sources--two in the U.S. and one in France--are presently being developed.